Biosystems Technology ATE Project

Clemson University (CU) and Greenville Technical College (GTC) are partnering to develop a three-tiered education program in biosystems technology for secondary, technical college and university technical program students, and pre-service and in-service secondary agriculture education teachers. Biosystems technology includes agricultural science, agricultural mechanization, applied biology, engineering sciences, and engineering technology. The goals of the Biosystems Technology ATE Project are to expand the engineering, technology, life science, agriculture, and mathematics knowledge base of individuals at the secondary, community college and university levels, and to stimulate student interest in biosystems technology. To achieve its goals, the project is (1) developing a curriculum-based high school-level biosystems technology program that articulates with GTC, (2) developing a biosystems technology certificate program at GTC that articulates with CU, and (3) developing a biosystems technology minor at CU. The project is meeting South Carolina's growing workforce needs in the bioprocessing and bioenergy industries.